Doctoral Dissertation Research in Sociology

This is a doctoral dissertation proposal to study the abolition of slavery in Suriname, a former Dutch colony in South America and a Caribbean society. The research will focus on changes in the composition and structure of the elite during the 19th century. Archival data will be analyzed and the measurement of structure at several points in time will introduce a dynamic perspective in the study of the interplay of state formation, ethnicity, and the emergence of elite in post-emancipation Suriname. The study will make contributions to the understanding of state formation, and the formation of elites, and it will increase knowledge about Caribbean societies.